Mathematical Sciences: Hidden Mark CV Models, Semi-parametric Models, and Sample Reuse Models

Proposal: DMS 95- 04955 PI: Peter Bickel Institution: UC Berkeley Title: Hidden Markov Models, Semi-Parametric Models, and Sample Reuse Models ABSTRACT This research involves development of methodology for inference in hidden Markov models; for model fitting, diagnostics and tests for semiparametric models; and studies of novel types of resampling methods. In the first area the main goals are to extend the work of Baum and Petrie (1966) and the investigators to underlying continuous state and time Markov processes and Markov random fields; and to study methods which achieve computational savings without sacrificing efficiency. In the second area, the goal of the investigators is to produce a unified approach to testing and model selection between and within models arising in biostatistics, econometric and elsewhere. In the third area, the goal is to study m out of n with and without replacement bootstraps for various purposes including setting critical values in difficult testing situations. The goal of this research is to develop statistically sound and computationally feasible estimates, tests, and error bounds in some types of complex models for data that arise, naturally in a number of important fields. Applications of hidden Markov models include speech recognition by machine and estimation of genomic sequence characteristics, of significance in biotechnology. Applications of semiparametric models include transportation choice and other aspects of civil infrastructure studies. Reliable resampling methods, our final area of study are essential for calculating error bounds and thresholds for the complex procedures we are developing and in fact are an essential part of the procedures as a whole. Their implementation is possible only in our age of ever more rapid computation.